An Investigation of the Combined Effects of Ethnicity, Socioeconomic status, and Gender on Mathematics Attitudes of Students MOST-AT-RISK of Dropping out of Mathematics

This is an exploratory interview study with high school students in the greater New York metropolitan area to determine what attitudes, competencies, and motivations explain why some students who are taking low-level, academically dead-end math courses, and who may be doing poorly in them, nevertheless express positive attitudes toward math, and report that success in mathematics will be important for their careers and lives. Generally, the educational psychology literature reports a correlation between achievement in a subject, but among Blacks especially this relationship does not always hold. If the factors in such a situation can be elucidated, effective encouragement and intervention by school personnel may be made possible.